Topics in QCD Modeling of Hadron Physics

The mechanisms underlying hadron physics in terms of bound states of
quarks and gluons are investigated. The particular approach used here is a
nonperturbative modeling of hadrons and hadronic processes based on the
Dyson-Schwinger equations of the underlying field theory. It has
particular advantages when the substructure of subatomic particles is probed
by the high energy scattering and significant recoil of beams of electrons;
the demands of relativity, important broken symmetries, and the
non-observation of quarks and gluons are easily incorporated. Established
perturbative behavior of the field theory is also preserved. This research
will extend the current reach of such an approach, and critically examine
short-comings, through an exploration of a number of topics. These include
the quark mass dependence of observables up through the charm quark region, and an
analysis of lattice-QCD results for intermediate elements, such as
quark propagators and quark-gluon vertices. An improved description of the
quark-gluon vertex is of primary interest since it controls the corrections
to the common ladder-rainbow approximation. The momentum scale at which the
pion charge form factor gives way to perturbative behavior is also of major
interest. Other topics include an analysis of quark propagators from
full-QCD lattice simulations, the use of an algebraic model to estimate the
strange quark content of the magnetic moment of the nucleon and to
explore high order corrections to ladder-rainbow approximation, the quark
mass dependence of meson structure observables, radiative transitions of
heavy quark mesons, and the extraction of nonperturbative physics from
quark current correlations.

Broader impacts of the program include the cross-fertilization of nuclear
and particle physics, a return on the investment in the experimental
facilities of subatomic science, integration of research and teaching, and
wide dissemination of scientific results. PhD students working on this
project contribute to undergraduate education through their teaching of
undergraduate laboratory or recitation sections. We foster interactions
between the PhD students and experienced researchers as a contribution to
the nation's research and education infrastructure. The PI uses examples
from this research program to illustrate key elements of core graduate
classes in Quantum Mechanics and Nuclear and Particle Physics. The PI
and a colleague supervise an informal seminar course for graduate students
and postdoctoral associates to discuss and present aspects of QCD and
field theory that are outside graduate coursework but nevertheless
central to cutting edge research. The PI is also active in a
re-structuring of the local undergraduate physics curriculum for majors;
a particular interest is the development of a freshman seminar course to
discuss current events of discovery and breakthrough in physics and
related science.